Representation Theory and Combinatorics

The proposed research problems all lie in the field of combinatorial
representation theory and have, as primary goals, combinatorial understanding
of representations of certain rigid algebraic structures,
all of which come from, or are generalizations of, Lie theoretic objects.
The goals of the proposed research projects
are to (1) construct a q-analogue of partition algebras,
(2) generalize the Springer correspondence to finite
complex reflection groups,
(3) provide detailed analysis of generalized Schur functors
at roots of unity, and (4) find a purely positive formula
for q-weight multiplicities.
This research strongly uses both algebraic geometric and combinatorial tools.

Most symmetry groups are complex enough that it is
difficult to study them directly and a representation
is a way of extracting information about these symmetries.
A general representation is a large and complex structure like a molecule
and is composed of smaller ``irreducible components'' which are
analogous to atoms.
The goal of Combinatorial Representation Theory (and this proposal)
is to find elementary models which allow
us to (more) easily determine properties of these representations.
These models enable one to obtain very explicit information
about the fine structure of the corresponding representations,
which have complexities on the order of the microscopic structure
of living cells.